Finite Strain Consolidation of Soft Clays

The principal objective of this three-year U.S.-Yugoslav cooperative research project in solid and geomechanics between Antun Szavits-Nossan at Zagreb University's Faculty of Civil Engineering and Robert L. Schiffman, University of Colorado is to develop and validate a theory for multidimensional, nonlinear, finite strain consolidation of soft soils by testing physical models in the laboratory and field. This a trilateral project, involving the expertise of the Zagreb, Colorado research teams and an Italian team at the University of Rome and Naples. The U.S. team will develop an uncoupled theory and centrifuge model tests (laboratory). Field data and soil samples will be provided by the Italian group; and the coupled theory, soft clay testing, and computer program will be devleoped by the Yugoslav group. Field verification will take place at test fills at the Leonardo Da Vinci airport at Rome. Finite strain consolidation of soils has a major impact on the behavior of offshore structures, highway embankments and protection of deltaic lands (Mississippi delta, for example) by sea dikes. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is funded through a joint fund of matching contributions from the U.S. and Yugoslav governments. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. Grants are made to the principal Yugoslav institution. Dollar funds are included for U.S. scientist travel to Yugoslavia and for Yugoslav scientists' living expenses in the U.S. The Italian research component of this grant will be supported from other sources.